QEM/TPC Regional Information and Technical Asssistance Workshops

This project will support three regional technical assistance and information workshops for the Teacher Professional Continuum (TPC) program. These workshops will continue the outreach plan to the community of minority-serving institutions, intended to increase their representation in the TPC portfolio.